Gas-Phase Chemistry and Spectroscopy of Transition Metal Complex Ions

This award in the Inorganic, Bioinorganic and Organometallic Chemistry program supports research in the laboratories of Professors David Richardson and John Eyler at the University of Florida. The research to be performed will utilize electrospray ionization Fourier transform ion cyclotron resonance mass spectrometry to examine the role of solvation in the thermodynamic properties and the reactivity of metal complexes. Specific areas to be studied include: the effects of solvation on charge-transfer in excited state complexes; measurement of solvent binding energies; the relationship between gas-phase and solution-phase reactivity of olefin polymerization catalysts; and reaction pathway studies of metal-hydroxide complex catalyzed hydrolysis of biopolymers. The biopolymer studies could lead to methodologies that greatly reduce the need of solution pretreatment for mass spectrometric analysis of proteins. Inorganic complexes mediate a wide range of chemical reactions. This research will lead to an improved theoretical understanding of the behavior of metal complexes in solution and enable the production of more desirable complexes for reaction specific reagents and catalysts.